Structure and properties of the Cascadia plate interface: evidence from an exhumed paleomegathrust in the Olympic Subduction Complex

Subduction zone faults produce the largest earthquakes on the planet and most of the devastating tsunamis. This project will study the Cascadia subduction zone, located off the Pacific Northwest coast, which represents a major earthquake and tsunami hazard to the USA and Canada. Researchers will study rocks from the Olympic mountains of Washington state to examine the signature of the earthquake process in the fossil faults, and map their geometry and extent in detail. The project will further benefit society through enhancing STEM education and public engagement through training graduate students and regional outreach. This research will provide important new insight into the causes of giant earthquakes.

Subduction zone megathrust faults produce the largest earthquakes on the planet and most of the devastating tsunamis, but their structure and geology are inaccessible. Exhumed ‘fossil’ plate boundary fault systems provide crucial windows into the seismogenic zone. To investigate the rock record of seismogenesis, the team will analyze a newly recognized paleo-megathrust fault that crops out in the rugged Olympic mountains of Washington, representing an analog to the Cascadia megathrust offshore. The wide exhumed fault exhibits both localized brittle fault strands and broader volumes of mélange fabrics. The research team will assess a hypothesis that the belt of mélange formed through primarily viscous interseismic processes, while the discrete localized fault strands formed brittlely during rapid, likely co-seismic slip, coexisting as intertwined processes in the plate interface. This study will elucidate the properties that govern the elastic locking and earthquake strain release that is the hallmark of sediment-rich subduction zones.